Microscopic Theory of Quantum Fluids and Nuclear Systems

A deep understanding of the phenomena observed in the strongly interacting many-body systems prevalent in nuclear physics, dense-matter astrophysics, and condensed-matter physics requires intensive ab initio investigations using advanced analytical and computational approaches that reach far beyond traditional mean-field theories. This project continues the development and application of two complementary many-particle theories, the one involving description of fundamental correlations in terms of wave functions, basis states, and density matrices; and the other addressing in-medium modifications of particle properties and interactions in terms of one- and two-body propagators. Specific applications of these methods and other techniques will include calculation of (e,e'p) and (e,e'2N) cross sections, construction of an in-medium nucleon-nucleon interaction for analysis of heavy-ion reactions, studies of strangeness propagation in nuclear media, quantitative evaluation of the properties of nucleonic superfluids in various pairing channels, elucidation of universal features of P-wave pairing, exploration of the role of exchange-symmetry breaking within an ab initio theory of Bose-Einstein condensation in liquid helium, and statistical prediction of nulear halflives and atomic masses. In salient cases, the research will be instrumental to the interpretation and modeling of experimental results from electron-scattering, heavy-ion, and radioactive-beam facilities as well as astrophysical observations relating to neutron-star interiors.